ARFMP: Renovation of Stauffer Chemistry, Chemical Engineering Complex

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to Stanford University for the renovation and repair of the Stauffer building complex which houses a portion of the research and research training activities in Chemistry and Chemical Engineering. This building was constructed in 1961 and last renovated in 1989. The ARFMP grant of $1,500,000 and $4,375,000 provided by the grantee as cost sharing will be used to modernize these research and research training facilities so as to meet the significant new demands placed on them by research in these fields and the requirements for the safe practice of that research. This project will address the need to improve the current research infrastructure by systematically upgrading major building systems and by selectively renovating individual laboratories to conform to recent building and fire codes. Top priority will be given to the renovation of the intake/exhaust systems including the replacement of all existing fume hoods for safety, economic, and research quality considerations. This award contributes to the infrastructure of science and engineering by providing an improved environment for the conduct of research and for the training of quality undergraduate and graduate students. This project will enable two leading research and research training departments to continue to provide not only an outstanding environment but one with an increased capacity for training the excellent students it attracts. Students trained in these laboratories are in demand in both basic and applied research fields.